Radiative Cooling and Homogeneous Droplet Freezing in Laboratory Clouds

Clouds play a critical role in the Earth System, providing precipitation and impacting surface temperatures. An important aspect of clouds that is still uncertain is the connection between cloud droplets and radiation. This project will investigate the response of cloud droplets to longwave infrared radiative cooling and how droplet growth by condensation of water vapor and freezing should be considered by numerical models. This work will help to improve weather forecasting and potentially has impacts on other areas of engineering that require knowledge about cooling processes. The project will contribute to workforce development through the training of a graduate student.

In this research, radiatively induced cloud-droplet growth, cooling, and freezing will be studied both experimentally in laboratory-produced clouds and computationally with analytical and theoretical modeling. Laboratory experiments will be conducted in which cloud droplets will be exposed to radiative cooling, similar to what can happen in cloud-top generating cells in extra-tropical, cold-season cyclones or other storm systems. Cooling will be such as to induce homogeneous freezing of droplets. Changes in droplet size due to mass transfer (primarily growth via condensation) will be measured as well as temperature changes. An analytical model of the radiative cooling and condensation process will be developed. The common modeling assumptions of homogeneous (droplet-non-specific) supersaturation and droplet-non-specific radiation, which have recently been questioned, will be investigated and improved upon. Laboratory measurements will be used to develop and validate new modeling assumptions by comparing the measurements with analytical predictions. New theory will be developed for the effect of droplet-specific, non-homogeneous supersaturation. New basic scientific information about the state of homogeneously frozen droplets with solute will also be obtained. These results will impact a fundamental problem in cloud microphysics: the problem of numerically modeling cloud droplet evolution in a complex, constantly changing fluid dynamic, thermodynamic, and radiative atmospheric environment. The results of this study could lead to a new and deeper understanding of basic processes that will not only benefit the environment but other areas of engineering and technology such as phase-change heat exchanger design and electronics cooling. The ultimate broad impact of this study is a better scientific basis for understanding cloud microphysics and for conducting weather prediction and global circulation modeling.